Development of the Platteville Atmospheric Observatory

This grant develops the Platteville Atmospheric Observatory, located in Platteville, Colorado. The observatory currently has VHF, UHF, and boundary layer wind profilers for lower atmospheric measurements of winds, waves and stability. The PI plans to establish a medium frequency radar and all-sky meteor radar, providing measurements of upper atmosphere winds. She will also upgrade the VHF wind profiler and UHF boundary layer profiler to provide greater sensitivity for atmospheric coupling and precipitation studies. In sum, these acquisitions, developments and upgrades will implement research of large scale wave motions and their influence on circulation, wave-wave interactions, coupling of energy and momentum between regions of the atmosphere via gravity waves, boundary layer evolution, and land-atmosphere hydrological processes.